A Redesign and Enhancement of the Low Light Auto-Radiometer (LoLAR) for Deep-Sea Irradiance Measurements.

P.I. Widder, Edith (Harbor Branch Oceanographic Inst.) Proposal #: 0221097

The PIs propose to upgrade the Low Light Auto-Radiometer (LoLAR). LoLAR is a submersible, radiometrically calibrated detector that was developed with joint funding from NSF and ONR. It is currently deployed on the Johnson- Sea-Link submersible, down to depths of 1000 m to measure downwelling irradiance with respect to the vertical distribution and migration patterns of mesopelagic organisms, as well as to make in situ measurements of bioluminescence. LoLAR combines the high quantum efficiency of a photomultiplier tube with a solid-state autocalibration circuit. The funds requested would be used to redesign LoLAR based on a proven auto-calibration concept, using recent technological developments that make it possible to greatly reduce the cost, size, and complexity of the system with the intent of developing a versatile instrument that can be made accessible to a wider range of users.